Mathematical Sciences: Control of Distributed and HereditarySystems

This project concerns the mathematical theory of control, stabilization and optimization of infinite dimensional systems - in particular distributed parameter systems governed by partial differential equations and hereditary systems governed by delay- differential and functional-differential system. The research will focus on four main topics: a). Modeling and models of hybrid systems, b). General theory of controllability and stabilization of hybrid systems, c). Optimal control of hybrid systems, and d). Robustness analysis of hereditary systems.